Engineering Research Equipment: A Very High Speed Ellipsometer for Plasma Process Control Research

9622407 Terry This is a Research Equipment Grant for the purchase of a very high speed ellipsometer for use in plasma processing/film thickness analysis. The instrument will be used for research on the effects of reactive plasma on surfaces in reactive ion etch and plasma enhanced chemical vapor deposition environments. ***